The Temperature Dependence of Creep and Relaxation Behavior of Structural Metals: A Micromechanical Study of the Macroscopic Response

The purpose of the proposed research is to develop a theoretical model for the effect of temperature on time-dependent creep deformation of structural materials. The theoretical model will consist of combining the micromechanic aspects of deformation with the continuum mechanics formulation. It is planned to experimentally verify the model where possible. The temperature range covered in this investigation will extend from room temperature to above half the melting point of the materials. Particular emphasis will be given to combined effect of temperature and stresses. After the micromechanical model is developed and verified, macroscopic models, useful for engineering design and analysis will be developed. The proposed research could lead to significant fundamental advances in high temperature deformation of materials.